International Travel Grant: 23rd International Conference on Coastal Engineering, Venice, Italy, October 4-9, 1992

The grantee will travel to the 23rd International Conference on Coastal Engineering, October 4-9, 1992, in Venice, Italy to present two papers and chair a session. He will visit the construction site of a storm surge barrier being built to protect the Venice Lagoon and the historic city from periodic flooding events.